Polymer Physics of Marine Gels: Dynamics of DOC-POC Studied by Dynamic Laser Scattering Spectroscopy using Phaeocystis Gels as a Model

This study proposes to elucidate the dynamics of particle aggregation in the arctic ocean, particularly in the context of the rich conceptual background of polymer physics of marine biopolymers and colloidal polymer gels. A major component of the global carbon pool is in the form of colloidal carbon, and the study of the processes that increase or decrease the reactivity of marine polymer gels is important in understanding the role of carbon transport and marine productivity. The PIs plan to use dynamic laser scattering conditions that mimic those found in the ocean as a means to show whether biopolymers originating from the DOC (dissolved organic carbon) pool can spontaneously assemble into micrometer-size gels that can condense by phase transition and mineralization. Results will be compared with the activity of cultures of Phaeocystis algae, an important natural contributor of biopolymers and polymer gels.